Sources and Sinks of Anthropogenic C02: Integrated Assessment Using Biogeochemical Modeling and Inversion of Atmospheric Tracer Transport

ABSTRACT ATM -9711616 Denning, A. Scott University of California, Santa Barbara ATM- 9711619 Sarmiento, Jorge L. Princeton University TITLE: Sources and Sinks of Anthropogenic CO2: Integrated Assessment Using Biogeochemical Modeling and Inversion of Atmospheric Transport The major objective of the proposed work is to provide a quantitative assessment of the current CO2 budget and develop new models with more sophisticated integration of atmospheric, terrestrial, and marine processes with anthropogenic emissions. Integrated multi-tracer inversion calculations will be performed. This should provide a more accurate CO2 budget. This study is unique in that it will develop calculations of sources and sinks of CO2 using CO2 and its stable isotopic composition.